STTR Phase I: Ultrasonic Fracture Healing Assessment

The broader impact/commercial potential of this Small Business Technology Transfer (STTR) Phase I project is a novel medical device algorithm for assessing the status of bone fracture healing using ultrasound measures. The system aims to provide advantages to current X-ray based paradigms by reducing cost and radiation exposure, and by enabling portability. An estimated 130 million X-Ray procedures are performed in the US each year, at a cost of $16 billion with as much as 25% redone due to quality issues. Furthermore, 2.8 million patients are considered at risk for delayed/non-union fractures. The combined market potential is $1.3B/year as a software solution to ultrasound equipment vendors and $1.4B/year for at home monitoring.

This Small Business Technology Transfer (STTR) Phase I project aims to develop the company’s proprietary fracture healing algorithm utilizing ultrasound data. During the first phase the company will acquire, analyze, and compare in-vivo ultrasound, X-ray, and micro-CT data in a lapine model across the healing cycle of surgically induced tibial diaphysis fractures. The company aims to de-risk their fracture healing to monitor the stage of orthopedic healing versus X-rays with 90% statistical confidence. The risks to be addressed include signal characterization versus noise ratio, back-scattering, and fracture healing classification. The results of the Phase 1 study will provide a working algorithm suitable to begin human feasibility testing.